Spring Lecture Series 2004 -- Recent Developments in Applied Harmonic Analysis: Multiscale Geometric Analysis

DMS 0353198

PI J Hogan

University of Arkansas

Spring Lecture series 2002: Applied Harmonic Analysis:
Multiscale Geometric Analysis

Abstract

This is the 29th in a series of spring lectures at the University of Arkansas. The main speakers are David Donoho and Emmanuel Candes, with about 8 other major figures giving shorter lectures. The web site for the conference is:
http://comp.uark.edu/~jeffh/sprlecture04.html. The subject is extremely active and multidisciplinary, lying at the crossroads of harmonic analysis, statistics and signal processing. For this reason, a larger than usual audience is anticipated, and its location brings significant mathematical activity to an area that is less visible in the US
mathematical world. Particular efforts have been made to attract faculty and students from neighboring institutions, many of which have significant minority enrollment. Lectures notes will be provided, and there will be discussions of open problems.